Swarm-Robot Paradigm Applied to Intelligent Materials Handling

9315358 Doty This award, in the Small Grants for Exploratory Research mode, addresses simulation and preliminary hardware implementations for exploration of the use of a "swarm" paradigm for organization of multiple cooperating robots for robust, flexible material handling in dynamic and uncertain environments. The exploration emphasizes collective behavior of agents with individually modest intelligence, using a minimalist approach of variations on a single basic building block. The domain of exploration is manufacturing work cells. If such a system can have sufficient robustness designed in, it could make robotics more appealing for manufacturing applications. Robust robotization of material handling would also facilitate system control of the material flow in a plant, thus supporting computer integration of manufacturing operations. This evolutionary design approach seems worthy of at least initial exploration, and at the modest level requested, and award is recommended.